Acrylic Polyampholytes for Environmental and Biological Separations

CTS-9501161 Hatton MIT The synthesis, characterization and applications of acrylic polyampholytes consisting of neutral, acidic and basic blocks will be studied. The polymers disperse as single chains at high pH, form stable micelles at intermediate pH and precipitate at the isoelectric point. Polyampholytes of selected chemical composition, architecture and molecular weights will be synthesized based on group transfer polymerization. The micellization, solubilization and adsorption of these polymers will be determination experimentally and theoretically as a function of salt and pH conditions. The applications of these polymers as solvents for contaminant removal from industrial discharges, for groundwater remediation and in ion-exchange displacement chromatography will be evaluated. The research may lead to the development of new copolymers with applications in environmental and biological separations.